Study of Scientific Responsibility and the Conduct of Research

This award represents a transfer of funds from Department of Health and Human Services to NSF for the purpose of HHS's contribution to the COSEPUP Study of Scientific Responsibility and the Conduct of Research